The Government-University-Industry Research Roundtable

The National Academy of Sciences will extend for two more years the Government-University-Industry Research Roundtable (GUIRR). Initiated as an experiment six years ago, the Roundtable is now recognized as an established, unique organization in national science and technology policy affairs. Federal agencies, state governments, universities, and industry all look to the Roundtable as the only forum in the United States that brings together the leaders of all sectors of the research enterprise on an ongoing basis and in a manner that injects imaginative thought into the policy process and more effective procedures into the nation's research system. The focus of the Roundtable continues to be on the three areas that have been the core of the Roundtable agenda since it was established: 1) the academic science and engineering research enterprise--its organizational arrangements, physical infrastructure, and support mechanisms; 2) new alliances between universities and other sectors and between federal and state governments--their contributions to academic research and teaching and to the processes of technical change and innovation in industry, and the difficult policy issues that arise as a result of the increased interactions; and 3) the identification, recruitment, and retention of science and engineering talent. A new proposed initiative, a comprehensive look at the management of the overall R&D enterprise, is a logical extension of the work in these three areas. This agenda is the result of extensive discussions within the working groups and the Roundtable Council over the past year, together with input from the relevant constituency groups, and is based on the accomplishments of current activities. In addition, the Roundtable will respond to issues vital to science and engineering that emerge in the policy environment. The topics addressed by the NAS Government-University-Industry Research Roundtable have direct relevance to NSF planning and evaluation activities.